CISE Research Instrumentation

A 4096-Processor Connection Machine will be provided for researchers at the University of Massachusetts Amherst for research in the Department of Computer and Information Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of image understanding, neural computation and learning, programming environments for massively parallel computation, theoretical aspects of parallel architectures.